EAGER: Multilayer Network Resilience Analysis and Experimentation on GENI

This research will generate new knowledge about the design and deployment of resilient networks using GENI. It will evaluate alternatives for future Internet design using the GpENI infrastructure, under the GENI PlanetLab control framework, and -- stitched together with several ProtoGENI facilities -- perform resilience and survivability experiments at scale, investigating, in particular, the geographic scope needed to emulate large-scale disasters. GpENI provides the ability to construct a large set of arbitrary backbone topologies, while the dense ProtoGENI clusters will emulate both wired and wireless access networks. These experiments will cross-verify analytical and simulation-based resilience research currently underway, leveraging topology and challenge generation tools developed for this purpose, and emphasizing multi-path multi-realm diverse transport protocols. The broader impact of the project includes fulfilling the vision of GENI supporting future internet design, and contributing to the education of graduate students at Kansas Univeristy.